Applications of Cosmogenic Helium to Earth Sciences

Recent measurements in various laboratories have established the presence of cosmogenic 3He in terrestrial samples. In order to document the production rate and production mechanism of cosmogenic 3He in surface rocks,the PI has engaged in a program of measurements in geologically well-documented samples. Recent measurements in radiocarbon dated lava flows show that the 3He production rate has varied by up to the factor of three within the last 10,000 years. The variations may be related to changes in the earth's dipole moment, which modulates the cosmic ray flux. In order to test this hypothesis, new measurements will be carried out on radiocarbon dated flows from various latitudes. The available data suggest the cosmogenic 3He will become a powerful tool for measuring exposure ages, which will have important applications to glacial geology and possibly paleomagnetism. Calibration of the technique will also include new measurements on previously dated glacial morraines from Antarctica collected specifically for this purpose.